All-Sky Camera Measurements of the Aurora Australis from Amundsen-Scott South Pole Station

This project will continue the operation of the all sky camera at South Pole Station. The grant also provides for the processing, analysis, and interpretation of the data. The images are used in conjunction with other instruments on site to study the aurora and other atmospheric and ionospheric phenomena. It is expected that the investigator will actively collaborate with other investigators as well as make use of data from other instruments at the site and spacecraft data.